NSF Young Investigator

9457916 Falk A program of research in the theory of elementary particles will be initiated. This will include a study of heavy quark effective field theory and the properties of heavy quarks. Another study will be of the nature of the breaking of the electroweak gauge symmetry. ***